RIMI: Fuel Atomization in Gas-Turbine Combustors

9350487 Ibrahim The proposed research will develop computer models for predicting the characteristics of the spray produced by the atomization of liquid-fuel sheets such as in gas burners nozzles. An innovative mathematical formulation that takes into account the effect of liquid viscosity and sheet thickness attenuation is advanced. A computer code would accept normally known parameters, such as sheet properties, initial velocity and thickness as input and compute the outcome of the atomization process, such as the resultant fuel-drop size and velocity. Predictions of the mean drop size and velocity would eliminate the need of experimental distributions using the maximum entropy principle. The results of the proposed effort are expected to enhance the ability to perform a controlled design of the combustion processes that take place in gas-turbine combustors. ***